Research Training Group in the Role of Transition Metals in Biology

This award provides funds for the establishment of a Research Training Group in the Study of the Role of Transition Metals in Biology. The faculty group is a mixture of outstanding senior and junior investigators who come from a variety of disciplinary backgrounds, but share a common interest in the role of transition metals in biological processes. The funds will provide stipends for graduate students and will support research participation by undergraduate students. Funds will also defray part of the cost of the trainees' research, and will be used to purchase specialized research equipment to be used by trainees. Funds for an annual workshop that will bring investigators from other research and academic institutions to the Georgia campus. In recent years, the combination of new genetic techniques with powerful biophysical and biochemical approaches has led to significant new knowledge of the architecture and function of enzymes and other proteins. An important aspect of this new knowledge is an increased appreciation of the central role played by transition metal ions in a large variety of biological processes. It is clear that continued progress in this area will require the training of a new generation of researchers with an understanding of modern genetics, biochemistry, molecular biophysics and inorganic chemistry.